X-Ray Source and Detector for Protein Crystallography

Protein crystallography is playing a central role in the advances made in biochemical research today. This application proposes to set up a state-of-the-art laboratory-based data collection facility, consisting of a rotating anode source with a position- sensitive area detector. This facility would complement the existing facility for macromolecular crystallography at the Biomedical Technology Resource at the Cornell High Energy Synchrotron Source (MacCHESS). The current interests and projects for which the new data collection facility would be used cover diverse biochemical areas. These include structure studies of physiologically important molecules such as calcium binding proteins and hormones, enzymes, such as farnesyl pyrophosphate synthetase, which catalyze reactions in the biosynthetic pathways of some unusual and interesting natural products, FAD-containing redox enzymes, bacteriophage proteins which regulate gene transcription, specifically mutated or chemically modified species of RNAse, and in the future, systems involving membrane proteins currently under study.